Presidential Young Investigators Award: Partial Oxidations in Zeolites and Filamentous Materials for Composites

Three projects are included in this Presidential Young Investigator Award: partial oxidation in zeolites, filamentous materials, and water-gas shift reactions. Partial oxidation reactions are studied using catalyst systems based on zeolites prepared using multivalent ion- exchange cations such as iron, copper, or cobalt. Experiments are designed to determine whether, for a given cation-zeolite system, it is possible to alter the redox potential of the multivalent sites by changing the ion loading, the silicon/aluminum ratio, or the nature of other cation-exchange ions, or by framework substitution of other atoms for aluminum. Catalytic kinetic studies are conducted using these materials with emphasis on the partial oxidation of methane. Catalytic production of carbon filaments is well studied and serves as the starting point for attempts to alter the filament-producing catalyst so that subsequently it can be used to catalyze the formation of a matrix around the filaments; this would permit formation of composites in a single operation. Finally, the mechanism by which rare earths promote the water-gas shift reaction over sulfided cobalt-molybdenum catalysts is investigated.